United States Air Force (USAF) Support of the National Center for Atmospheric Research Activities

This is a Cooperative Support Agreement to the NSF/UCAR Cooperative Agreement to support the National Center for Atmospheric Research funded by the United States Air Force.